Scale-Invariant Skill Augmentation for Cooperative Human-Machine Micromanipulation Systems

The proposed work addresses development of novel methods for enhancing the ability of humans to perform complex and delicate manipulation tasks at a microscopic level. The proposed approach is based on a combination of off-line programming and on-line adaptation of task-specific human-computer manipulation idioms. The work builds upon this group's experience in the development of steady-hand robotic augmentation. Specific tasks from microsurgery and micro-assembly will be used for testing the ideas and evaluating the results obtained.